American Film Institute

9420642 Flickinger This project connects the American Film Institute to the Internet over a T1 (1.54 bits per second) line. The Institute is installing a server to allow Internet access to its film and television results. Researchers at the Institute benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for 18 months.